Japan STA Program: Environmental Protection: Titaniumdioxide as a Photocatalyst for Waste Water Treatment

9512718 Reddy This award supports a 24 month Science and Technology Agency of Japan Postdoctoral Fellowship for Dr. Satya Reddy, Department of Chemistry, the Ohio State University, at the Chemical Synthesis Laboratory, National Institute of Materials and Chemical Research (NIMCR), Tsukuba, Japan. Dr. Reddy will work with Dr. Keiichi Tanaka, Director of the Chemical Synthesis Laboratory at NIMCR on a research project entitled, "Environmental Protection: Titaniumdioxide as a Photocatalyst for Waste Water Treatment." The main objective of the research is to develop a potential catalyst which is able to concentrate the organic pollutants from the environment and thereby mineralize them into harmless chemicals. Special attention will be paid to the volatile organic halocarbons that are causing the depletion of atmospheric ozone layer and are potential dangers to the global ecosystem. The research is also designed to explore advanced techniques to remove aromatic hydrocarbon pollutants from drinking water. The proposed research is considerable interest in the United States and Japan and the facilities at the Chemical Synthesis Laboratory in Tsukuba will provide an excellent location for research efforts. The research will provide a valuable learning experience for Dr. Reddy, and will likely yield positive results for the United States and Japan as well as the international community as a whole. As such, the research satisfies the objectives of the program in its emphasis on the exchange and transfer of scientific knowledge through international collaboration. ***